Investigation of Molecular Processes at Ultracold Temperatures

State of the art electronic structure and coupled-channel methods are used to investigate reactive collisions at ultracold energies. The theoretical investigation will aid in our understanding of how to cool and trap molecules.